2012 The Auditory System GRC/GRS; July 7-13, 2012, Bates College, Lewiston, ME

2012 Gordon Research Seminar and Conference on "The Auditory System"

The auditory system is marvel of speed, accuracy and versatility. Animals use sound to locate and communicate with one another over great distances, to identify and avoid danger, and to derive pleasure in the form of music. The 2012 Auditory System Gordon Research Conference (GRC) will explore a set of interconnected themes that address how this system first emerges during development, how it is shaped by experience, and how it represents a complex acoustic environment. The conference will bring together a diverse group of scientists and students who will share their most recent findings, from the molecular mechanisms of hair cell transduction to auditory perception. A key goal of this project involves mentorship of students and junior investigators. Thus, graduate students and postdoctoral fellows are encouraged to gather for a smaller Gordon Research Seminar (GRS) that immediately precedes the GRC. Here, students will exchange ideas with one another, and with a small number of senior investigators who will be available for scientific feedback and career advice.

The conference will take place in a rural and collegial setting, with a schedule designed to stimulate facilitate discussion, both during and after the formal presentations. There will be ample opportunity for informal conversations and brainstorming sessions during the free afternoons and at shared meals. The specific sessions will cover the maturation of function, the effect of environment noise exposure or deprivation, multisensory integration, encoding and decoding acoustic signals, and vocal communication. In addition to the invited speakers, several short talks will be selected from amongst the submitted abstracts, and these are specifically designed to include students and junior faculty. All participants will also be able to share their results during highly interactive poster sessions each afternoon and following the evening sessions. Together, the Auditory System GRS and GRC will provide a superb environment for participants to establish new collaborations and learn how their own work intersects with contemporary research in the hearing sciences.